Acquisition of a Wide Angle X-Ray Diffraction System

9626320 Ward Advances in materials science require detailed characterization of the structure and composition of materials. Consequently, x-ray diffraction continues to play a vital role in the synthesis, fabrication and characterization of advanced materials and in materials processing. This award provides support for an x-ray diffraction system to be housed in the University of Minnesota X-ray Diffraction Facility. X-ray diffraction is an integral part of numerous University research programs related to materials research, and the Facility has actually served eighteen different universities, at least fourteen industrial research laboratories and programs affiliated with the National Science Foundation's Center for Interfacial Engineering. The requested equipment will replace an aging Siemens diffractometer which poses safety hazards and has performance limitations. The system represents a significant improvement in the Facility's capabilities, providing a rotating anode source for faster sample throughput (imperative for a multi-user facility), and control of sample environment. This acquisition will substantially benefit several key principal investigators whose research programs involve materials research, as well as a substantial user community composed of academic and industrial scientists. ***